Mathematical Sciences: Undergraduate Research in Numerical Linear Algebra and Optimization

This Research Experiences for Undergraduates project will engage students in research focusing on the solution of matrix systems. The mathematics serves as the basis of diverse scientific applications such as differential equations, computational complexity and optimization, to name a few. Following an orientation, students will be introduced to recent developments in decomposition techniques for solving matrix equations. These involve iterative methods for which convergence estimates must be made in advance. Much of the testing will require computational experimentation. This will allow students to become familiar with a variety of on-campus computers which we be available to them. Schemes for solving quadratic programming problems will be addressed as the mathematics develops. Two of the four advisors will be mathematicians from Spelman College. The two from Georgia Tech are faculty in the School of Industrial and Systems Engineering. The project will be funded jointly by the Operations Research and Production Systems program of the Engineering Directorate and the Division of Mathematical Sciences.